Monte Carlo Investigation of Three Issues: Exact Monetary Aggregation under Risk, Tests for Nonlinearity and Chaos, and the AIM Model's Regularity Properties

If there is risk aversion relative to current period prices or interest rates, the tracking properties of all statistical index numbers, including the Divisia and superlative index numbers, are unknown. Under the previous NSF grant, the investigator demonstrated that the tracking ability of the discrete time Divisia index is not seriously compromised by risk aversion. However, that study used data produced by the economy. The use of data from the economy leaves many problems unanswered. For example, it is possible that specification errors might be large and might coincidentally offset the tracking error in the Divisia index. If that were true, the conclusion that the Divisia index is robust to risk aversion might be wrong. This project uses a Monte Carlo approach to generate simulated data in which only one possible source of tracking error remains: the degree of risk aversion. The results of this project are important for monetary policy because monetary aggregates are used by monetary authorities to track the performance of the economy. The research is also methodologically significant because it requires computationally demanding replications of state of the art nonlinear rational expectations models.